Z Physics at SLD

9510439 Plano This is a proposal from two members of the faculty in the physics department at Rutgers to continue their research in the analysis of polarized Z decays using the SLD detector and the linear electron collider at SLAC. The accelerator has achieved a 80% polarization of the electron beam and the stated plan is to collect 500,000 Z decays over the next several years. This will allow the SLD group to make what is expected to be the world's most accurate measurement of the Weinberg Angle by a technique which is different from that at LEP. The difference between the measurements at the two accelerators will be an important measure of the radiative corrections in the standard model. The polarization of the Z will also allow them to make significant measurements of Bs mixing. The group has joined the BABAR collaboration to study CP violation at SLAC following at SLAC following the conclusion of the SLD program. ***